Rheology and Atomization Studies on Concentrated Supensions with Application to Coal Water Slurry

This research is concerned with experimental and theoretical studies of two related subjects, rheology and airblast atomization, in concentrated suspensions of particles larger than colloidal sizes. The major research objective is to improve understanding of the structure and the underlying mechanisms of concentrated suspensions with application to coal water slurry (CWS) technology. Research emphasis is placed on particle-particle and particle-fluid interactions as affected by particle surface property.